Acquisition of High Field Nuclear Magnetic Resonance Instrumentation

This award from the Academic Research Infrastructure (ARI) Program will assist the Department of Chemistry at the University of California Riverside upgrade the existing 500 MHz NMR. This equipment will enhance research in a number of areas including the following: (1) human erythrocytes, disulfide bonds in peptides and the interaction of peptides with heparin (2) structural studies of vitamin D in vitamin D-protein complexes (3) determination of non-standard nucleic acid structures (4) investigation of the roles played by low-barrier hydrogen bonds in enzyme catalysis, and (5) structure-function relationships for macromolecular structures of biological significance. Nuclear Magnetic Resonance (NMR) spectroscopy is the most powerful tool available to chemists for the elucidation of the structure of molecules. It is used to identify unknown substances, characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectrometry is essential to chemists who are carrying out frontier research. The results from these NMR studies are useful in the areas such as polymers, catalysis, and in biology.